Characterization of the Sak1+ Gene of Fission Yeast: A Member of the RFX Family of DNA-Binding Proteins

; R o o t E n t r y F 0 7/ @ C o m p O b j b W o r d D o c u m e n t O b j e c t P o o l 0 7/ 0 7/ F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; Oh +' 0 $ H l D h R:\WWUSER\TEMPLATE\NORMAL.DOT marcia steinberg marcia steinberg @ V 5/ @ @ l7/ @ d Microsoft Word 6.0 4 S u m m a r y I n f o r m a t i o n ( e m s h n h o P W M N O Q R S T V W Z u c u D c U c V c c * = A J N P Q R S U V X Y Z ' ' ' ' ' ' ' ' , 0 ! K @ Normal a " A@ " Default Paragraph Font +@ Endnote Text c *@ Endnote Reference h " @ " Footnote Text c &@ ! Footnote Reference h , @ , TOC 1 0 , $ ( @ ( TOC 2 0 , $ ( @ ( TOC 3 p 0 , $ ( @ ( TOC 4 @ 0 , $ ( @ ( TOC 5 0 , $ & @ & TOC 6 0 , $ @ TOC 7 0 , & @ & TOC 8 0 , $ & @ & TOC 9 0 , $ * @ * Index 1 ` , $ * @ * Index 2 0 , $ & .@ & TOA Heading , $ "@ Caption c O _Equation Caption 5 marcia steinberg!\\CLM11\MCBPUB\BIOCHEM\MCLEOD.WP5 @HP DeskJet Printers LPT1: HPDSKJET HP DeskJet D L f , , " / d }w;/ } d " W HP DeskJet D L f , , " / d }w;/ } d " W < < q q < < C Times New Roman Symbol & Arial 5 Courier New 9 ) G eR e "4 marcia steinberg marci a steinberg ; e = e N " " " " " " " L L L L L d n L C x | | | | | | | # f W T 4 " | | | | | | " " | x | | | | " | " | 6 > " " " " | | 5 | 9509215 McLeod The sak1+ gene is an essential regulatory element in the life cycle of fission yeast, Schizosaccharomyces pombe. Expression of sak1+ delays cell cycle progression and causes cells to slow their rate of growth. Thus, analogous to tumor suppresser genes, sak1+ is likely to encode an element of a pathway coordinating cell growth and events of the cell cycle. The predicted protein product of the sak1+ gene contains several strong regions of homology to a family of transcription factors identified in humans and mice. Members of this family, known as RFX, are involved in regulation of many cellular and viral genes. The regions of homology between sak1+ and the RFX proteins are highly significant because they correspond to important functional domains. In particular, a DNA binding domain, a dimerization domain and a motif associated with the ability of RFX to activate transcription are also highly conserved in sak1+. The structural conservation observed between yeast RFX and human RFX suggests that these regions may also be functionally conserved. The short te